The Application of Data Flow Testing to Integration

This research will investigate the application of data flow testing to integration in order to assist in validating procedure interfaces and procedure interaction for programs written in procedural languages such as Pascal, Modula-2, and Fortran. This work will include the development of techniques to compute interprocedural definition-use information, techniques to determine whether a particular test case exercises a definition-use pair, and techniques to incrementally update both the interprocedural data flow information and the test coverage information for regression testing. Issues such as handling reference parameters, global variable, aliases, nested scoping and recursion will be considered. A prototype system for integration data flow testing will be implemented and used to perform experiments to study the efficiency and effectiveness of interprocedural data flow testing. The main benefit of the proposed work is that it will provide significant advances over existing integration test data selection techniques for both initial and regression testing.